RUI: Neurobiology of Serotonin

9514369 Luine Communication between cells in the brain requires the secretion of a chemical from one cell which then acts on another cell, that is frequently adjacent to it. One of the chemical messenger molecules of the brain is serotonin. If enough cells in the brain release the same neurotransmitter in the same area at the same time, the behavior of the organism may be changed. Dr. Luine is involved in elucidating whether serotonin or another chemical mediator, gamma-aminobutyric acid, is responsible for mediating hormone-dependent behavioral changes. The change in gamma-aminobutyric acid levels after hormonal treatment or under natural conditions are being assessed, as are modifications in gamma-aminobutyric acid receptors, and the enzymes responsible for producing this chemical in the brain. Investigating the physical connections between serotonin- and gamma-aminobutyric acid-containing neurons is underway. These studies will allow Dr. Luine to establish the complex interplay between brain messenger molecules required to formulate a behavioral response. Moreover, these investigations will provide a useful model for understanding how serotonin and gamma-aminobutyric acid interact throughout the brain. All vertebrate species sleep, eat, and behave and these results will be pertenient to the generation of behaviors in animals in their natural habitats.